Collaborative Research: CSR---AES: A Framework for Optimizing Scientific Applications

Title:
Collaborative Research: CSR---AES: A Framework for Optimizing Scientific Applications

The Design Optimizer for Scientific Applications (DOSA) framework
allows the programmer or compiler writer to explore alternative
designs and optimize for speed (or power) at design-time and use its
run-time optimizer as an automatic application composition system
(ACS) that constructs an efficient application that dynamically adapts
to changes in the underlying execution environment based on the kernel
model, architecture, system features, available resources, and
performance feedback. DOSA allows design-time exploration and
automatic run-time optimizations using continuous performance
optimizations (CPO) so that application programmers and compiler
writers are relieved from the challenging task of optimizing the
computation in order to achieve high performance. As an illustration
of the DOSA framework, one complex, full application is optimized for
IBM Cell. The innovative performance optimization techniques for the
memory hierarchy use new techniques for reducing I/O complexity, data
layout, data remapping, and in-memory processing, and are supported by
DOSA, the semi-automatic design framework and dynamic run-time
system. This framework allows rapid, high-level performance estimation
and detailed low-level simulation by incorporating high-level
performance models into the model-integrated computing framework. The
run-time system dynamically improves application performance using the
component library, the models, and the run-time optimizer. The
application studies are chosen for their broad impact to traditional
and emerging scientific areas such as bioinformatics, computational
biology, and medical applications, as well as for national security.
The project especially encourages the participation by women,
minorities, and underrepresented groups.